Effects of Climate Change in the Colorado Alpine

This project represents a third phase of the University of Colorado Long-Term Ecological Research program. It builds upon research in alpine processes and patterns related to disturbance conducted during Phase I and Phase II of the program. Field studies will be continued at Niwot Ridge and in the Green Lakes Valley with selected studies in the wider region of the Colorado Front Range. The goal of this research is to understand the influence of snowpack and summer precipitation on ecosystem processes and landscape patterns and to use this understanding to predict responses to climate change. The central hypothesis is that alternation of snowpack or rainfall regimes will cause changes in alpine ecosystem processes and patterns at site and regional scale. The alpine tundra is often thought to be sensitive to climate change and is known to have responded to such changes in the 12,000 years since deglaciation. The reasons for this sensitivity are its low productivity and tight nutrient cycling and its situation at an extreme for many plant processes. In Phase III of this project emphasis will be place on further experimental studies of ecosystem processes and patterns and their modeling as a means of predicting the effects of altered showpack and summer precipitation patterns. In particular, scale considerations will be emphasized hierarchical approach. Remote sensing will be used to examine regional primary productivity along elevational and climatic gradients in the Front Range and to facilitate extrapolation from the primary study site at Niwot Ridge to other alpine areas. This theme derives from that of Phase I, which was based on the premise that present alpine ecosystems reflect past climatic conditions and Phase II, which focuses on the resilience and resistance of tundra systems. Many of the databases derived from this earlier work will be crucial to our Phase III research and will be maintained for the next six years.